Nuclear Magnetic Resonance Spectrometer

The determination of the dynamics and structure of molecules lies at the heart of chemistry. Nuclear magnetic resonance (NMR) spectroscopy plays a central role in that process. NMR is introduced and used in the laboratory by students in their first organic chemistry course, NMR occupies a more advanced level in the instrumental analysis course and again at a still more advanced level in physical chemistry and undergraduate research. This Fourier transform NMR is used for analysis of tiny quantities of material produced in the beginning microscale organic laboratory as well as the structure analysis of newly synthesized molecules utilizing 2D techniques. This modern, fast, sensitive NMR has expanded significantly the scope and sophistication of a large part of the Mount Holyoke College laboratory curriculum. The institution is matching the NSF grant with an equal amount of funds.